U.S.-U.K. Cooperative Research: Small Molecule Interfacial Segregation in Multi-Phase Thin Film Polymer Blends

9975486
Composto

This three-year award supports US-UK collaborative research in polymer science between Russell Composto of the University of Pennsylvania and Richard A.L. Jones of the University of Sheffield in the United Kingdom. The investigators will study the thermodynamic and kinetic principles underlying polymer interfacial phenomena at the molecular level and in multi-phase systems. Complementary techniques of low-energy forward recoil spectrometry and neutron reflectivity will be used to measure interfacial excess of small molecules, and the effect of small molecule composition, chain length and polarity on interfacial properties.

Polymer interfaces play a critical role in technologically important areas including food packaging, protective coatings, adhesives, and biocompatibility. The proposed research will advance understanding for optimizing the surface, interface and bulk properties of multi-phase thin film polymer blends. The US investigator brings to this collaboration expertise in low-energy forward recoil spectrometry. This is complemented by British expertise in neutron reflectivity. The project takes advantage of unique, real time, neutron sources currently availability in the United Kingdom (Rutherford-Appleton Laboratory) and in Grenoble, France.